Medium Energy Hadronic and Electromagnetic Physics

A user mode research program will be carried out in medium energy hadronic and electromagnetic nuclear physics. Polarization studies relating to properties of the nucleon and of few body systems will be carried out at the SATURNE facility (Saclay, France), at the MIT/Bates electron linac, and at CEBAF. New and much more precise data on the charge structure of the proton will be obtained at Bates and in the future at CEBAF. At Saclay, data will be obtained on polarization variables leading to improved understanding of the deuteron, and will also provide important polarimeter calibration data essential for the CEBAF and MIT/Bates core research programs. Experiment planning and detector development work will be carried out relating to these and other approved activities at Bates and at CEBAF. Simulations, data analysis, interpretation, and other related activities will be carried out at William & Mary.